Collaborative Research: Adaptation and Implementation of Activity and Web-Based Materials into Post-Calculus Introductory Probability and Statistics Courses

Mathematical Sciences (21)

The objectives of this collaborative project are to improve post-calculus students' learning of probability and statistics and to provide students with better preparation for their future careers in mathematics and statistics, mathematics education, and computer science. These objectives are being achieved by focusing on active and cooperative learning, visualization of concepts, and use of simulations in post-calculus introductory probability and statistics courses at the University of Alabama - Huntsville and Middle Tennessee State University via the adaptation and implementation of two recently developed National Science Foundation funded materials. The materials are (a) A Data-Oriented, Active Learning, Post-Calculus Introduction to Statistical Concepts, Methods, and Theory (DUE-9950476) and the (b) Virtual Laboratories in Probability and Statistics (DUE-9652870). Project activities include faculty enhancement at the institutions, the respective institutional adaptation and implementation (A&I) of the materials, the evaluation of the A&I of the materials, and the assessment of students learning while using the materials. The University of Alabama Huntsville is providing the evaluation.